Parameters of Social Identity

People define themselves in part in terms of the groups or categories to which they belong, e.g. as women, attorneys, African-Americans, or parents. These group memberships, or social identities, motivate people's behavior and influence the way they react to others. Important distinctions exist among identities, however. Two ways in which identities differ are: (1) whether an identity is ascribed, such as gender or ethnicity, or achieved, such as an occupation or a parent role; and (2) whether the identity is enacted primarily in the private or in the public domain. Six studies, using a combination of laboratory experiments and structured interviews, will explore the implications of these differences for self-evaluation, group evaluation, and interaction with others. The overall goal is to understand how various forms of identity relate to each other and what characteristics of group membership are important for what forms of social activity.